Magnetic Fabric Analysis of Sediments Using Partial Anhysteretic Susceptibility Anisotropy

It has been shown experimentally that different alignments of fine-and coarse-grained magnetite in limestone can be separated by the measurement of Anisotropy of Anhysteretic Susceptibility (AAS) when a more conventional technique, Anisotropy of low-field Magnetic Susceptibility (AMS) failed to do so. Sediment depositions will be carried out in an applied magnetic field both in (a) cylinders simulating depostion under quiet conditions and (b) laboratory flumes under controlled rated of sediment deposition and shear stress. The results can be applied to separating grain-size-dependent contributions to magnetic anisotropy. Results of this research will be applied to Remanent Magnetization (DRM) from post-depositional chemical alterations and/or strain events and (b) resolving the contributions of different grain sizes to the magnetic fabric of sediments.